Experimental Evolutionary Studies of Temperature Adaptation: Evolution in a Constant Thermal Environment

This project examines long-term evolutionary and genetic changes in
populations of bacteria living for thousands of generations in constant
thermal conditions. The PIs will determine the consequences of adaptation to
these constant environments, specifically, the increase in relative fitness
and efficiency of growth. The PIs will also examine whether these changes are
accompanied by loss of function in other thermal environments, that is,
whether the range of temperatures over which the bacteria can grow and
reproduce declines and whether they become less fit and less efficient in
other thermal environments than that in which they are cultured. The PIs will
make these measurements on two sets of bacterial lineages, one that has
been cultured at 37 C for 20,000 generations and another that will be
cultured at 37 C for 2,000 generations, after having adapted to other
thermal environments. The results of these studies will provide important
experimental tests of predictions for the responses of biological systems
to global climate change and for general evolutionary theory concerning
environmental adaptation.